RIMI: Research Improvement In Theoretical Physics (Particle Physics)

9550702 Wu The proposed research would support new research in theoretical physics at Prairie View A&M University. The research would focus on (1) B-particle processes. The B-particle physics and CP violation work will be devoted to finding methods to sort out the CP violating phases from the phases which can interplay with them. Tests of CPT invariance and B decays with final state baryons will also be studied. The computer simulation of physical processes work will be aimed at creating an event generator of gluon-gluon scattering which produces a top-anti-top pair plus two gluons. Four undergraduate students will participate in the proposed work. ***